Collaborative Argumentation with AI Agents: Understanding Human-AI Interactions

Collaborative argumentation is a key tool for deep science learning and supporting the next generation of scientists, but it can be difficult to effectively enact in large enrollment undergraduate courses due to unequal participation, diverse goals, prior knowledge gaps, or lack of coordination among student group members. Generative Artificial Intelligence (GenAI) as a peer collaborator holds strong potential to monitor and offer just-in-time support for students during collaborative argumentation. While most existing research focuses on AI as a tutor, recommender, or evaluator, few studies have examined how learners and AI agents co-construct knowledge through collaborative dialogue. This three-year project explores how GenAI can meaningfully augment introductory undergraduate biology students' learning through collaborative argumentation. The team of researchers will design, implement, and study how three collaborative configurations (Individual–AI, Group–AI, and Human Only Group) shape interactions, students' intellectual autonomy, trust, and learning outcomes. In doing so, the project seeks to produce generalizable design principles for future AI-augmented learning systems, which will support scalable and responsible AI systems in education.

The project is guided by the following research questions: 1) How does group configuration (Individual–AI, Group–AI, and Human Only Group) inform design principles? 2) What interaction patterns and learning mechanisms emerge in GenAI-supported collaborative argumentation, and how do they differ from human-only groups? and 3) How do GenAI-supported and human-only collaborations influence students' science learning, intellectual autonomy and trust? The researchers will use a design-based research approach to address these questions as they iteratively develop two GenAI-supported collaborative argumentation modules (Aim #1); pilot test materials in lab sections of a university introductory biology course (Aim #2); and conduct field studies to compare interaction patterns, students' intellectual autonomy, perceptions of trust with GenAI, and learning of biology concepts across group configurations (Aim #3). The project will support future human-AI learning systems by producing a novel framework for understanding human–AI co-construction of knowledge in undergraduate biology classrooms that integrates distributed cognition, epistemic cognition, and evolutionary thinking. Additionally, the project will generate design principles for future AI-augmented learning systems and a working platform (AI agent and instructional modules) for targeted concepts in undergraduate biology.

This project is supported by NSF’s EDU Core Research (ECR) program and NSF's IUSE: EDU Program. The IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. The ECR program emphasizes fundamental STEM education research that generates foundational knowledge in the field. Investments are made in critical areas that are essential, broad and enduring.